High Speed Network Connectivity for the American Museum of Natural History

This proposal seeks funding for an advanced network connection in order to facilitate research and education in the following ways:
Computational Astrophysics-Use of remote supercomputer for large-scale, 3D simulations of supersonic gas dynamics and magnetohydrodynamics to study star formation (funded by NSF Career Award, NASA and NSF Awards);
Observational Astrophysics-Survey for High Proper-Motion Stars-This will speed up the investigation and cataloging of millions of stars and answer some fundamental questions about the nature of white dwarf stars based on terrabytes of data at the Johns Hopkins' Space Telescope Science Institute (funded by NSF, NASA);
Digital Library Project-Sharing of Museum Data (32 million specimens and cultural artifacts) to the scientific community at large;
Comparative Genomics/Evolutionary Biology-Multiple projects (funded by NSF, NASA)
High resolution Virtual Specimens for Morphometrics-Dissemination of very large 3D specimen object datasets over high speed networks to provide a database of virtual objects (funded by NSF) ;
Center for Biodiversity-Various Projects including humpback whale research, remote sensing research taking place worldwide, including Vietnam, Madagascar, Bahamas (funded by NSF, NASA, Private) ;
Geology-Improve the remote operation of a microprobe, housed at AMNH, from Lamont Doherty Earth Observatory at Columbia University (funded by NSF)
Interdepartmental Labs-Remote collaborative work via remote operation of telescopes and microscopes;
Hayden Planetarium-Development of new Digital Dome shows which involves the acquisition of images, remote supercomputing for rendering of visualizations, remote collaboration in development.